Structural Investigation of Hydrated Silicate Melts at High Pressure and Temperature

The principal investigators will study the vibrational spectra of hydrous silicate glasses and melts at conditions of both elevated pressure/temperature. Results will provide information on the speciation of H2O in silicate melts under magmatic conditions, and will be of significance in both igneous petrology and materials science.